Fourier Transform Infrared Spectroscopy for Tribology Research

This award will allow acquisition of a Fourier transform infrared spectrometer to be used in on-going studies of the tribology of magnetic information storage systems. In particular, the instrumentation will be used to study the thickness and wear of the thin lubricant films which cover the hard disk media and to follow any chemical interactions which may occur at the interface.